Special Minority Award (Physics)

This Special Minority Award will give the graduate student additional flexibility in pursuing his graduate studies and research initiation in Physics. His research interests include Classical Mechanics, Electromagnetism, Quantum Mechanics, and Relativity, leading to a career in Theoretical Physics--an area in which the University of California, Berkeley, is strong. This award will strengthen minority research participation in physics.